Lubricated Nozzles for High Speed Slurry Jets

9320153 Katz Under and SGER award an attempt will be made to solve the problem of nozzle wear in abrasive slurry jet cutting operations by lubricating the interior nozzle surface from a pressurized reservoir located on the outside of the porous nozzle material. A two dimensional apparatus will be constructed to allow detailed observation of individual particle movements as an aid in determining optimal process and design parameters. ***